Cone Penetration Testing in Cemented Sands

The need to identify cemented sand deposits and evaluate their engineering characteristics together with the difficulty in sampling such deposits require the use of insitu testing schemes. Among different insitu testing schemes, cone penetration testing is gaining wide acceptance and use in the nation. This study will investigate the effect of cementation on cone penetration testing. Piezocone penetration tests will be conducted in a calibration chamber on saturated specimens of artificially cemented sands. The results obtained from the calibration chamber (experimental model) will be compared with the predictions of available theoretical models and a new theoretical model that incorporates dilation. Using the predictions of these experimental and theoretical models, a methodology will be formalized to identify cemented sand deposits and evaluate their engineering characteristics. The accuracy and reliability of the developed scheme will be investigated by piezocone penetration testing at a site with well-documented naturally cemented sand deposits.